Celebration of Undergraduate Research

This award through the Division of Chemistry provides support to Colorado State University Libraries to develop a web site for an On-line Poster Session that will provide a new venue for undergraduate research students to display their results. The PI for this project is Michelle Wilde, Physical Sciences Librarian at Colorado State University. Co-PI is Graham Peaslee, Professor of Chemistry at Hope College and current chair of the Division of Chemistry REU Leadership Group. Upon completion, this project will display the excitement and enthusiasm experienced by many undergraduate REU students in a medium that can be accessed by other scientists, the general public and policy makers. In addition to the dissemination of research results, the On-line Poster Session has the potential to increase numbers of students majoring in STEM fields by stimulating their interest in scientific research, benefiting society and contributing to the long-term goals of the nation.